Arithmetic Groups

We plan to study arithmetic groups for their own sake and for their
applications to other branches of mathematics and computer science.
Two central themes are the subgroup growth of arithmetic lattices and the
combinatorics of the simplicial complexes obtained by taking quotients of
Bruhat-Tits buildings modulo arithmetic groups.

Arithmetic groups are at the crossroads of several central areas of
mathematics: Lie groups, number theory, geometry and combinatorics.
Their study can be carried out using a wealth of different methods and
shed light on different directions. A previous work has led to the
construction of Ramanujan graphs which turn out to have remarkable
applications to computer science and combinatorics. One of the goals of
this research will be to study higher dimensional analogues with the
hope of getting deeper applications.